Physics and Chemistry of Semimagnetic Semiconductors

It is proposed a collaborative interdisciplinary research program, between the MIT Francis Bitter National Magnet Laboratory, the Chemistry Department of Brown University, and the Physics Department of Tufts University for a study of the physical behavior and crystal chemistry of semimagnetic semiconductors. They plan to study stannite crystals with Mn, Fe, Ni and Co, II-VI compounds with Fe and Mn, and Mn- chalcopyrites, with emphasis on the following problems: i) Large polaron effects in stannites. ii) The metal-insulator transition. iii) Magnetism and polaron formation in Fe-alloys. iv) Nonlinear properties and novel states of HgCdFeSe. v) Crystal chemistry to determine when and how magnetic ions are incorporated in covalently- bonded semiconductors. These problems will be investigated with a variety of techniques including Raman scattering, magnetoreflectance, luminescence, magnetization, susceptibility, electrical transport, and nonlinear optics at NML and/or Tufts. Crystal chemistry studies will be performed at Brown University.